Probing Liquid Surfaces

This Career Advancement Award will enable Dr. Mary Jane Shultz to shift her research empahsis from electronic-vibrational state specific reactivity to the less well defined area of reactions on liquid interfaces. The project will develop spectroscopic and molecular probes capable of examining liquid interfaces. Ionic species will be studied at the interface by second harmonic generation and by FTIR. Structural and dynamic parameters will be measured and interpreted in terms of how ions interact with liquid interfaces. %%% This proposal develops a program which can provide new information on the interactions of gases with liquids. The work is important because many environmental problems are related to such interactions. The work can lead to a better understanding of environmental chemistry and to ways that such problems as air pollution can be minimized.